WORKSHOP: Code Generation and Optimization (CGO) 2009 Student Travel Support, March 22-25, 2009 in Seattle, WA

This proposal requests NSF support to assist students in attending the 2009
International Symposium on Code Generation and Optimization (CGO 2009). CGO
provides a premier venue to bring together researchers and practitioners working
on feedback directed optimization and backend compilation techniques. The
symposium covers compilation for parallelism, performance, power, and security.
This support will broaden participation in CGO by subsidizing the travel for participants who might not otherwise travel to attend CGO. The funds will be used solely to provide travel support for students from US universities.